ENG/INT Joint Grant Opportunities For Collaborative Research at Foreign Centers of Excellence: Electric Vehicles Infrastructure

9412636 Bass It has been projected that mass-produced electric vehicles will penetrate the U.S. market in substantial numbers by the end of this decade. Much of the required infrastructure needed to support this new technology remains to be developed. The proposed collaboration is jointly sponsored by Georgia Power Company and Electricite de France. Both of these utilities have established major research programs in EV infrastructure development. The 6 month internship will occur at the EDF Research Facility in Paris, where Dr. Bass will be exposed to a broad spectrum of research activities. More specifically, he will focus on charging and power quality issues. ***